Bringing Young Minority Women to the Threshold of Science

This project is involved in interesting young minority women in future careers in science and engineering by providing them with enrichment skills, incentives, mentors and role models upon which to base their career choices. Twenty-four minority girls who are in grades 9 and 10 and six high school teachers are participating in a year-long program which includes a Saturday program during the school year and a 10- day summer residence program. Objectives include interacting with female scientists and university professors as role models, raising sights toward higher education, developing a peer network, and upgrading skills and confidence with computers.